A Paleomagnetic Study of Middle Paleozoic to Lower Triassic Units in Guangxi, South China

This study will obtain samples paleomagnetic analysis from interbedded volcanic and carbonate sedimentary rocks in western Guangxi Province, southern China, in order to better define the Apparent Polar Wander Path for the South China block during the Paleozoic. Previous models for the rifting of the South China block from Gondwanaland place the rifting event in the Devonian, but preliminary new data suggest it may have begun much earlier. The results of this study will be important for plate reconstructions for the Paleozoic and will greatly improve our understanding of the tectonic evolution of this region.